Young Galaxies

Thuan, Trinh Xuan 96-16863 Dr. Thuan will continue a collaboration with scientists from Unkraine and Russia to study nearby galaxies which are extremely metal- deficient blue compact galaxies. The first research goal is to obtain a high precision measure of the primordial helium abundance for a sample of candidate blue compact galaxies. The primordial He abundance constitutes one of the most promising ways to constrain the standard Big Bang nucleosynthesis theory and the chemical evolution models of blue compact dwarf galaxies. The second goal is to study the extended HI envelopes around young blue compact galaxies. These are good candidates for being primordial neutral hydrogen intergalactic clouds, which will be studied to help understand why star formation has been stunted for so long in these envelopes.